Enigneering Research Equipment Grant: Vibration Isolation Table Power Amplifiers Microprocessors

This project provides resources to procure equipment to support electromechanical devices research and contact physics research. The equipment comprises a vibration isolation table, power amplifiers and a signal processing computer. Two research projects will benefit from the availability of the equipment. The first is concerned with the development of a vibration control method for structures which support ultra precise systems (laser mounts, precise machining systems, navigational gyroscopes, etc). The vibration isolation table provides a quiescent environment for ultra precise experiments associated with this project. The method takes advantage of the magnetostrictive properties of materials made of iron and rare earth metals. The second project focuses on understanding the tribological phenomenon of thermoelastic instability, whereby sliding contact between a motor brush and rotor occurs over microscopic surface bumps (thermal mounds) on the brush face. The mound tends to move over the brush face in an unknown pattern. The research is directed at predicting this thermal mound motion. The equipment will also be used for general tribology research which emphasizes electrical contacts.